Use of Magnetostatic Waves for Rotation Rate Sensing

Previous research has demonstrated a new microwave ring resonator based on guided magnetostatic surface waves, which are guided around a closed circular path using a nonuniform in-plane magnetic bias field. This research extends the investigation to examining a rotation rate sensor, or tachometer. In such an application, the transducers remain stationary while the ferrite film supporting the waves is rotated. The rotation rate is determined from the additional phase shift of the waves caused by the motion of the medium. Such a tachometer could, in principle, exhibit a response time as short as several hundred nanoseconds. The ability to make virtually instantaneous rotation rate measurements would contribute to the stability and speed of many control systems used with industrial processes and robotics. The research has both the experimental portion and theoretical studies of magnetostatic waves in moving media.